Algorithmic Synthesis of Embedded Controllers

LGORITHMIC SYNTHESIS OF EMBEDDED CONTROLLERS

In recent years, microprocessors have invaded the physical world, resulting in
sophisticated but complicated networked embedded systems that defy theoretical
understanding, resulting in inadequate design tools for the modern embedded
system engineer. Embedded systems require the development of new theories,
methods, and tools providing the correct understanding of these systems and
accelerated analysis and design methods in order to ensure safety
but also substantially decrease their design time. Embedded systems require very novel, very challenging specifications that have
to deal with synchronization, sequencing, and temporal ordering of different
tasks. Mathematically formulating such desired specifications cannot be
achieved using traditional mathematical formulations in control theory. On the
other hand, computer aided verification has popularized the use of several
temporal logics to describe complex specifications. However, the emphasis has
been on verification of these properties for purely discrete systems, and not
on synthesis for systems with a continuous component.

In this research, a novel approach for automatically synthesizing hybrid
controllers is pursued in order to satisfy specifications that are expressed
in temporal logics. In particular, methodologies are developed to extract
finite abstractions of linear control systems, that will be used to design
controllers meeting the desired temporal logic specifications. Contrary to
other approaches, this project considers specification dependent abstractions
for continuous control systems as opposed to continuous dynamical systems. The
proposed framework will provide algorithms and tools for the computation of
discrete controllers, which by refinement will lead to embedded, hybrid
controllers for the original system while providing performance and
correctness guarantees.

The educational agenda of the proposal focuses on the development of a cross-
departmental, undergraduate, signals and systems course that broadens the
definition of systems in order to capture software and hardware systems in
addition to traditional control or communication systems. This course has been
carefully coordinated with recent curriculum changes and aims at the
educational uniformity of signals and systems concepts in both the discrete and
the continuous world.